Doctoral Dissertation Research: Spontaneous Generation Controversies: Scientific Politics, Evolution, and Molecular Theories

9320251 Geison Spontaneous generation--the theory that living cells can "spontaneously" develop from inert matter--has had a long, controversial history. The "correct" view since the 19th century is that spontaneous generation does not occur. Yet, unless there was some point in the history of the universe in which spontaneous generation of life occurred, then evolutionists are confronted with two options: divine intervention or the existence of "vital" matter. While neither of these options are inconsistent with evolution, they implicitly undermine evolutionary theory and, at least in the first option, play into the hands of creationists. If a god had to intervene at least once to create life, what prevents that god from intervening again to direct the development of species? So how is it that biologists have worked so energetically to disprove spontaneous generation? This is the issue that James Strick, under the direction of Dr. Gerald Geison, is examining in his doctoral dissertation. Mr. Strick has found that the spontaneous generation controversies in Britain offer a unique window into many areas of biological theory developing in the 19th century. These areas include biological explanations of inheritance, development, evolution, generation and cell theory. The debates over spontaneous generation reveal how thoroughly entwined into a single problem complex all these areas were, to a greater extent than has been appreciated previously. In addition, ideas in biology and physics about the nature of molecules and their role as simplest elements of life underwent rapid change during this period, exemplified by the debate over the significance of Brownian motion and Brown's "active molecules." This was an integral strand of the problem complex which has been almost totally ignored. Any attempt to explain why spontaneous generation lost favor so decisively after 1880 must explore all of these clusters of ideas which were pillars of support for sponta neous generation theories. Shifts in institutional power between the medical community and programs in experimental biology also played a major part in the demise of spontaneous generation theories. The maneuvering for control of prestige and power in British science by the Darwinian "X-club" during this period involved rhetorical strategies to make evolutionary theory more respectable by actively disengaging it from the traditionally linked doctrine of spontaneous generation. In order to undertake this study, Mr. Strick is examining archives in the United States, Great Britain and France--the centers of scientific work on this issue. ***